Mitigation of Impacts of Ocean Sciences Research of Marine Mammals 2009- 2011

Lamont-Doherty Earth Observatory proposes to support costs associated with preparation of environmental assessments, incidental harassment authorizations, on-board observers, and post-cruise reporting to National Marine Fisheries Service (NOAA) as part of compliance with environmental regulations (National Environmental Policy Act (NEPA), Marine Mammal Protection Act (MMPA) and Endangered Species Act (ESA)). Support is provided for such activities from the Oceanographic Technical Services Program at NSF primarily to address concerns regarding anthropogenic noise impacts on marine mammals by the large seismic arrays on R/V Marcus G. Langseth operated by Lamont-Doherty Earth Observatory. The budget in this proposal is for the first year of a 3-year continuing grant.